Relativistic Heavy Ion Physics

The goal of this project is the study of collisions between relativistic
nuclei and ultimately the determination of the properties of nuclear
matter over a wide range of temperatures and densities. Extremely hot or
dense objects which are made of nuclear matter exist in the cosmos;
however, without the possibility direct study of the interiors of neutron
stars, or of the first moments of a supernova, or of the earliest moments
of the Big Bang, one resorts to the challenging studies of finite and
transient systems as provided by nucleus-nucleus collisions. It
has become clear that in order to understand the nuclear equation of state
or to identify a transistion to a new state of matter, the quark-gluon
plasma, it will require a comprehensive and correlated set of measurements
as well as extensive calculations which relate the observables to the
nuclear matter variables. This project focuses on the acquisition and
analysis of such a set of data using the Solenoidal Tracker at RHIC (STAR)
experiment at the Relativistic Heavy Ion Collider (RHIC) located at
Brookhaven National Laboratory in New York and using the Compact Muon
Solenoid (CMS) at the Large Hadron Collider (LHC) located at the European
Center for Nuclear Research (CERN) in Geneva, Switzerland. The
collection of detector systems which make up both the STAR and
CMS experiment provide detailed information about individual
collision events. The UCD group will use data from these detectors to
reconstruct the events and infer, from the recorded debris, both the
dynamics and the thermodynamics of the collision. By scanning from
injection energy at RHIC to the full energy for ions at the LHC, the
energy range from twenty to six thousand times the rest mass will be explored.